The Colima Deep Seismic Experiment: Imaging the Magmatic Root of Colima Volcano

ABSTRACT
Most of the world's explosive volcanism occurs at widely-spaced volcanic centers
along convergent margins. Basaltic magmas from the subduction wedge are
channeled to volcanoes separated by tens or hundreds of kilometers and evolve
into silica-rich compositions associated with dome growth, pyroclastic flows
and explosive eruptions. Decades of geochemical research have outlined a suite
of processes which control the chemical and spatial evolution of these
volcanoes. These ideas, which rely heavily on processes in the lowermost crust,
have evolved with limited input from geophysics because the deep crust has been
difficult to probe with seismics, gravity, and/or electromagnetics. The Colima
Deep Seismic Experiment is one of the first to target the deep crustal
processes which create discrete volcanoes and ultimately control eruptive
behavior. In conjunction with the Observatorio Vulcanologico of Colima
University in Mexico, the PI will install and maintain a seismic array for 18
months in the vicinity of Colima Volcano. The Observatorio is responsible for
monitoring Colima Volcano, which is in the midst of an on-going eruption cycle,
and seismicity throughout the state of Colima which has had two earthquakes
greater than magnitude 7.5 in the last ten years. This project will be
co-deployed with the arc-scale network of Grand and Ni (EAR #0335782) which is
serendipitously centered on Colima. This array of intermediate-band instruments
will be wider than a typical volcano monitoring array and is designed to
optimize seismic tomography and receiver functions of the deep crust.
Teleseismic data, together with seismicity in the local crust and subducting
slab, will be used to map the temperature and melt conditions beneath Colima
Volcano. The results will be interpreted in the context of existing geochemical
models for the Colima complex to address two primary questions. (i) Is the
location and longevity of an arc volcano governed principally by diapirism in
the mantle wedge or by deep crustal conditions and Moho topography? (ii) What
are the relative roles of magma ponding at the base of the crust and magma
storage in the lower crust in controlling the evolution of subduction basalts
into more silicic arc volcanics? These questions, though ideally suited to
Colima, have implications at all arc volcanoes. This project is co-sponsored by
the Americas Program in the International Division.